Research Equipment: Testing and Data Acquisition Equipment for Geotechnical Centrifuge Laboratory

This Research Equipment Award is made to partially fund the purchase of a data acquisition system for the RPI geotechnical centrifuge.